SBIR Phase I: X-ray Microscope

This Small Business Innovation Research Phase I project is directed toward the development of a table-top x-ray microscope capable of 1 micron resolution at an x-ray energy of 30 keV. This resolution is approximately a factor of ten better than presently available devices using microfocus x-ray sources with magnification radiography. The proposed system is based on a novel x-ray detector capable of better resolution and higher Detector Quantum Efficiency than previously tried scintillators, such as particulate screens, dendritic Cesium Iodide, and fiber-optic-scintillator plates. If successful, the new device will be useful as a general purpose tool for nondestructive testing of materials, as well as biological and medical research